Volatile Metal Chelates for the Deposition of Superconduct- ing Materials on Ductile Matrices

This investigation will study several different volatile metal chelates that are likely to form thin films of high transition temperature superconducting material when deposited by metal - organic chemical vapor deposition (MOCVD). These studies will include the synthesis and characterization of beta-diketonates of barium, copper, and several rare-earth metals. These compounds as well as related known compounds that are on-hand will be used to determine the conditions necessary for thin film deposition and oxidation to yield superconducting layers on substrates such as copper and flexible fused-silica. Characterization of the resulting material will be made by powder x-ray diffraction and by measurement.